Immunoreactive Fos Maps Functional Hypothalamic Anatomy

Oncogenes, originally found in viruses, code for proteins which transform healthy cells into tumor cells. In the course of this work, it was found that normal cells contain non-mutagenic homologs of oncogenes, called proto-oncogenes. C-fos, is a proto-oncogene, and its expression appears to be one of the initial events resulting from stimulation of a cell. Thus, the determination of c-fos in neuron reactivity represents a promising tool to determine with high resolution and high sensitivity the pattern of activity at the cellular level. Dr. Hoffman will develop and validate the use of c-fos immunocytochemistry as a molecular tool to map hypothalamic neuronal activation. She has selected the magnocellular neurons within the supraoptic and paraventricular nuclei of the hypothalamus since quantifiable physiological stimuli activate these neurons to synthesize and release vasopressin and oxytocin. Vasopressin is involved in the regulation of water balance and blood volume and oxytocin is necessary for lactation and parturition. Using immunocytochemical double-labelling techniques and appropriate physiological stimulation, Dr. Hoffman will dissect the relationship between c-fos expression and hormone secretion and/or release. These studies will specifically distinguish active from inactive neurons and thus will add a new dimension to our understanding of the relationship between structure and function in the mammalian central nervous system. These data are likely to have a significant impact on the understanding of the functional physiology of the hypothalamus.